Science and Engineering Education for Infrastructure Transformation

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. The Concord Consortium in collaboration with Purdue University will research and develop an engineering education technology and pedagogy that will support project-based learning of science, engineering, and computation concepts and skills underlying the strategically important "smart" and "green" aspects of the infrastructure. This project will develop transformative technologies and curriculum materials to turn the campus of a high school or a geographical information system such as Google Maps into an engineering laboratory with virtually unlimited opportunities for learning and exploration. The project will deliver two innovations: 1) The Smart High School is an engineering platform for designing Internet of Things systems for managing the resources, space, and processes of a school based on real-time analysis of data collected by various sensors deployed by students on campus; and 2) the Virtual Solar World is a computational modeling platform for students to design, deploy, and connect virtual solar power solutions for their homes, schools, and regions. Six standards-aligned curriculum units based on these technologies will be developed to guide student learning and support educational research. Approximately 2,000 students from rural, suburban, and urban high schools in Indiana, Massachusetts, New Hampshire, and Ohio will participate in this research. project products and findings through the Internet, conferences, publications, and partner networks.

The research is designed to identify technology-enhanced instructional strategies that can simultaneously foster the growth of skills and self-efficacy in scientific reasoning, design thinking, and computational thinking, all of which are needed to build the future infrastructure. The focus on infrastructure transformation is aligned with NSF's vision of smart and connected communities. Although this project will use the context of smart and green infrastructure to engage students to solve real-world problems, the skills of scientific reasoning, design thinking, and computational thinking that they will acquire through meeting the challenges of this project can be transferrable to other topics and fields. Using a design-based research approach, a rich set of formative and summative data will be collected from these students for probing into three research questions: 1) To what extent does the integrated learning model help students develop and connect scientific reasoning, design thinking, and computational thinking skills?; 2) To what extent is students' interest in cognate careers affected by the authenticity of engineering design challenges?; and 3) How do the variations in the solutions to overcome the cognitive and practical difficulties of real-world problems impact learning outcomes and career interest? The data sources include pre/post-tests, process data, self-reports, observations, surveys, interviews, and participant information.